Performance of Existing Geosynthetic Reinforced Slopes During the Northridge-LA Earthquake of 17 Janaury 1994

9412803 Holtz This project involves the recovery of perishable data from the Northridge earthquake of January 1, 1994, as it relates to the performance of Geosynthetic Reinforced Slopes (GRS) subjected to seismic loading. Geosynthetic reinforced slopes are earth slopes (such as road cuttings) which are reinforced against slope failure (landslides) using geosynthetic materials. The project involves: (1) the identification of geosynthetic reinforced slopes which were subjected to substantial shaking by the Northridge earthquake, (2) the estimation of the ground shaking to which these slopes were subjected and any pre- earthquake movements of the slopes, (3) photographing the slopes from the ground and from the air and the measurement of landslide size, head and side scarps, and reinforcement patterns on the ground, and the collection of soil samples, and (4) the estimation of slide volumes, distances moved, and slope angles, and an attempt to correlate soil type, slope angle, type of reinforcement, reinforcement pattern, slope orientation and magnitude of displacement, where applicable. ***